Shippensburg University Scholarships for Educational Achievement in STEM (Ship-SEA-STEM) Program

The Shippensburg University Scholarships for Educational Achievement in STEM (Ship-SEA-STEM) program recruits academically talented students from economically disadvantaged and under-represented populations, including first generation college students, students from rural populations, and minority populations and retains these students in STEM disciplines using evidence-based strategies to support and motivate the students. The Ship-SEA-STEM program is providing three cohorts of select scholars with a comprehensive suite of financial assistance, support services, internship placements, and research opportunities. Using a variety of directed team-building experiences, which include a scientific writing course, workshops, retreats, research, and internships, the Ship-SEA-STEM program strives to increase motivation, enhance self-esteem, encourage learning, teach students how to problem solve, collaborate, and develop professional relationships. The Ship-SEA-STEM project seeks to build a culture of success among the target populations at Shippensburg University.